Gas Chromatography/Mass Spectrometry in the Undergraduate Chemistry Curriculum

Ripon College is acquiring a gas chromatograph-mass spectrometer (GC/MS) system for use by students in the organic microscale laboratory, and in the non-majors course in forensic science. The instrument is also being used in advanced laboratory and instrumental analysis courses, as well as in undergraduate research.